MO: Evolution and Diversity of Biochemical Pathways: a Methylotrophic Microbial Observatory

A grant has been awarded to Drs. Mary Lidstrom, Ludmila Chistoserdova and Murray Hackett at the University of Washington, to continue their Microbial Observatories project focused on an environmentally important group of bacteria that grow on simple compounds containing a single carbon: the methylotrophs. During the prior funding period, extensive knowledge was gained on the abundance and diversity of methylotrophs in Lake Washington, WA, pointing toward the existence of a multi-tiered microbial food web involved in environmental cycling of one-carbon compounds. These studies also revealed important insights into the evolution of methylotrophic pathways in different bacteria. The new data showed that many members of the methylotrophic guild remain uncharacterized in pure cultures, some belong to novel, uncharacterized phyla, and their specific roles in the cycling of environmentally important compounds remain poorly defined. The next phase of research will use a combination of cutting edge technologies such as community DNA sequencing and analysis, microarray technology for assessing gene expression, and high throughput community protein pool analysis in order to obtain systems-level knowledge of the genomic determinants, expression patterns, and protein fingerprints of methylotrophic microorganisms, ultimately linking the genomic potential of this group to its ecological function.

This work will provide further insights into the complex communities in nature that are responsible for the cycling of one-carbon compounds. Methylotrophs play an important role in keeping natural habitats healthy and thriving, and they are the main consumers of a number of compounds that contribute to global warming, such as methane, bromomethane and chloromethane. Establishing which microbial taxa are responsible for the utilization of one-carbon compounds, understanding regulation of their activities, as well as uncovering potential synergistic relationships within their communities represent important steps in developing accurate predictions regarding the relationship between the carbon cycle and global warming. The broader impact of this project will be in presenting a model for systems-level approaches to analyzing other complex microbial communities. In addition, the project will serve as a vehicle for actively involving graduate, undergraduate and high school students, including underrepresented minority groups in environmental microbial research.